The History of the Federal Government's R&D Investment and the American Aerospace Industry - Task Order #37(NASA)

The History of the Federal Government's R&D Investment and the American Aerospace Industry